Quantative Studies of Submarine Lava Flow Morphology

This study will develop methods for inferring the emplacement conditions of submarine lava flows based on their surface morphology and texture, using laboratory simulations, modeling and mapping of undersea flows. Laboratory experiments will use polyethylene glycol in tanks of cold sucrose to simulate silicate lavas. Dredge samples will be used to estimate eruption rates of flows from their crystal content and rheological properties. The results will ultimately lead to constraining models of ridge evolution.